Research in Nonlinear Problems Arising in Mechanics

The scientific tools used by Slemrod in his research on finding
multi-scale models for constitutive relations for gases, fluids, and
granular materials are kinetic theories for these materials
and singular perturbation limits. These singular perturbation limits
allow him to recover models on large space and time scales. However
the linking of the large and small scales in unified models will be
accomplished by a new technique developed by Slemrod and motivated
by the procedure used by physicists in the study of critical phenomena.
Slemrod calls the method" generalized rational approximation".
It provides a stable way of extrapolating from small scale to
large scale models of materials.

In the study of the dynamics of liquids, gases, and granular materials
it is important to have good mathematical models to aid in the prediction
of physical phenomena. It is also important to have these models to be
valid on a whole range of length and time scales. For example the motion
of the atmosphere (a rarefied gas) far away from a plane or a space shuttle
re-entering the earth's atmosphere uses a large scale model different
than that used to model the small scale dynamics of a shock layer near
the plane or shuttle. However for computational efficiency one unified
model valid on a large range of length and time scales is desirable.
Slemrod in his research will formulate a method for finding such models
for fluids, gases, and granular materials.